PACIFIC 2018 Symposium, February 13-18, 2018 in Akaigawa, Hokkaido, Japan.

This award will provide support for the "Particle Astrophysics and Cosmology Including Fundamental InteraCtions (PACIFIC) Symposium." It will be held February 13-19, 2018 in Akaigawa, Hokkaido, Japan.

It has a particular focus on early career scientists and graduate students, as it will provide participant travel support for them to be able to participate in the symposium. This interdisciplinary conference will have an impact on the broader field including particle physics, astronomy, and mathematical physics.

This symposium will focus on the latest developments at the interface of particle physics, astrophysics, and cosmology and on their ramifications for understanding fundamental interactions. There will be sessions devoted to Astroparticle experiment/observations, Particle Theory, High-energy Astrophysics (theory and observations) and Cosmology.